Problems in Statistical Mechanics

Professor Thomas Keyes is supported by a grant from the Theoretical and Computational Chemistry Program to perform theoretical studies on liquid state dynamics. Keyes has developed a new technique for performing dynamical studies of the liquid state which depends on harmonic normal mode analysis. This new methodology has been applied to supercooled liquids where existing dynamical theories have shown limited success, and it is capable of yielding an Arhhenius activation energy for self diffusion. The technique will be developed further to treat several other dynamical quantities including rotational diffusion, spectral linewidths, and the identification of the region of cooperative rearrangement. A secondary topic which will be studied is the computer simulation of laser ablation of silicon and diamond. These ablation simulations will lead to a more detailed picture of the energy redistribution within these materials, and the mechanism for thermal and nonthermal laser action. %%% The focus of this project is the dynamics of motion in the liquid state. The research has an important bearing on the dynamical factors which control chemical reactions in the liquid state or in solutions.